Fostering Conceptual Understanding Using a "Hands-On" Approach in Undergraduate Statistics

9452320 Bukatko The goal of this project is to restructure the teaching and format of the introductory statistics course, a required course of all majors in psychology. The project uses an interactive learning approach rather than the traditional lecture/discussion model. A principal goal is helping students appreciate more the concepts and assumptions that underlie various statistical tests. Active-learning modules on central statistical concepts incorporate computer graphing and statistical analyses, computer graphing enable students to visualize the theme of each module. The graphing component is especially helpful to those students who have difficulty understanding mathematical formulae. Also, the computer-based statistical exercises permit students to immediately observe the effects of various transformations and relations among various sets of data.